Effects of Viruses on Coral Fitness

Corals are important ecosystem engineers, providing habitat and nutrient recycling to tropical reefs. However, coral species richness and abundance are in decline world-wide, due in large part to anthropogenic impacts stemming from global industrialization and human population growth. Over the past several decades, global coral cover is estimated to have declined between ~20 to 60%, and approximately one-third of all known reef-building corals currently face an elevated risk of extinction. Coral disease is a major contributor to this decline of tropical reefs, and therefore, investigations into the causes of and remedies to these diseases are of critical importance. Currently little is known about viruses that infect corals. This project will address this issue.

Herpes-like viruses have been shown to be produced in coral tissues after acute episodes of stress.Viral diversity characterization, however, does not inform scientists about the effects of viral infection on coral hosts. This project will investigate whether viral infection in corals leads to disease and/or reductions in coral reproductive fitness. Specifically, this project aims to compare and contrast the relative abundance and diversity of viruses present in coral tissues during episodes of diseases, particularly, growth anomalies in Porites species and white plague disease in Montastraea species. Pyrosequencing of viral DNA will be conducted on healthy and diseased corals to: i) characterize new viral types, ii) determine whether viral types are associated with particular diseases, and iii) address the central hypothesis that viruses contribute to reduced coral fitness. Sequence analysis and functional annotation of coral viromes will determine the phylogenetic and evolutionary relationships of these viruses and identify viral mechanisms of host infection and disease. The role of viruses in host fitness will be further explored using coral fecundity and larval survivorship and settlement experiments on the model coral, Acropora millepora. Viruses will be isolated from adults, egg bundles, and larvae, in order to determine the transmission mode and ontogenic fitness effects of viral infection.

This proposal will expand the coral taxa, diseases, developmental stages, and geographic regions from which viruses have been characterized, broadening our general knowledge about the diversity of these coral parasites. The examination of viral consortia in healthy and diseased corals combined with viral inoculation experiments will then take the next step and provide scientists clues about the ecological roles that viruses play in coral reef ecosystems. This combination of high-throughput sequencing and microscopy-based methods will lead to a more comprehensive picture of the diversity and role(s) of coral viruses in holobiont fitness and disease. Lastly, insight into how viruses are transmitted will give policymakers better information about how to control viral outbreaks, including limiting the spread of infection and disease.

Recent metagenomics work has begun to uncover unique viral assemblages associated with a variety of ecosystems. To a large extent, this work has focused on phages from the open ocean and temperate coasts. This project will use similar methods to investigate viruses in tropical stony corals, a group of highly threatened organisms which provide a multitude of ecosystem services to marine organisms and local communities. The characterization of viral consortia in healthy, diseased, and different life stages of corals will provide scientists clues about the roles that viruses play in the establishment, health, and resilience of these critical ecosystem engineers.

Florida International University (FIU) is one of the largest minority and urban-serving institutions in the country. During the course of this project, mentorship will be provided to undergraduates, graduates, and postdoctoral researchers. This project will provide funds to begin the hands-on training of two female graduate students, a postdoctoral researcher, and two undergraduates in marine science, molecular biology, developmental biology, coral reef ecology, and bioinformatics. Such interdisciplinary training will help these young scientists develop a broad and technologically savvy academic career in the marine sciences. Lastly, this project will provide a solid foundation for the scientific career of a young female minority investigator.